U.S.-France Cooperative Research: Studies on Pigments in Seawater and Marine Sediments

This three-year, U.S.-France award in chemical oceanography research involves Daniel J. Repeta at Woods Hole Oceanographic Institution and two research groups in France. The main objective of their project is to define the geochemical behavior of chlorophyll and pigment tracers in marine water and sediments. In cooperation with Ruben Ocampo Torres at the University of Louis Pasteur in Strasbourg, the U.S. investigator will analyze sedimentary organic matter using chemolytic methods. In the second collaboration with Herve Claustre of the marine chemistry group in Villefrance/Mer, the U.S. investigator will field test, phycobilins, a pigment tracer for remote sensing of algal class distribution These studies combine U.S. and French expertise in geochemistry, chemical techniques and remote sensing techniques.